ITR: Consistent Software Evolution

Software is multidimensional; it has many representations besides the
program source. These include formal specifications, test suites,
documentation and even the development history. As software evolves,
these dimensions must stay consistent and reflect each other as
thoroughly as possible. In practice, however, while these are usually
consistent when first created, they tend to receive unequal attention
and therefore gradually become inconsistent. Programmers thus
typically rely on the source code to the exclusion of most other
dimensions.

This project's goal is to help programmers cope with software
evolution by viewing the dimensions of software as constraints on one
another. The project proposes a constraint representation common to
the different software dimensions. Software evolution then becomes a
process of maintaining consistency between constraints. These
constraints also help programmers identify high-level features in
their system, and generate rationales to document design decisions.

The escalating costs of software maintenance give the project
immediacy and its results high significance. It will have immediate
impact by developing tools for programmers to use. It will have
effect over the long term by employing these tools in educational
settings so future developers have a better appreciation for the
importance of maintaining the multiple dimensions of software.